Support of Dark Matter Silver Jubilee Symposium; Syposium to be held in Richland, WA

This award will provide participant support for early career scientists and graduate students to participate in the "Dark Matter Silver Jubilee Symposium" at Pacific Northwest National Laboratory, Richland, WA on June 19-21, 2012. The symposium will host distinguished speakers in the field of dark matter research providing an overview of the research to date and an outlook for future investigations.

For Broader Impacts, it has a particular focus on early career scientists and graduate students. The workshop will feature a free public lecture on Dark Matter.